5th International Symposium on Radiative Corrections (RADCOR-2000); Santa Cruz Institute for Particle Physics and Stanford Linear Accelerator Center; September 11-15, 2000

The 5th International Symposium on Radiative Corrections (RADCOR-2000) will be co-hosted by the Santa Cruz Institute for Particle Physics and the Stanford Linear Accelerator Center. The conference will be held from September 11-15, 2000. The conference will bring together theorists and experimentalists in elementary particle physics in a highly interactive format to confront the Standard Model of the elementary particles and basic forces, and its possible extensions, with a wide range of observational data. The unifying theme of the conference will be small effects which can be predicted with some precision, and so can serve to test the Standard Model and to search for new physics beyond it. Such effects have already taught us a great deal about the Standard Model and about possible new physics. A conference to consider the recent and future study of such effects will be very worthwhile.